Partial Support of the Board on Earth Sciences and Resources

The Board of Earth Sciences and Resources provides over- sight of solid-earth activities within the National Resarch Council. This action provides partial support of the core activities of the Board and selected committees of the Board. It is expected that the Board will produce reports assessing the health of the science and identifying major research oppor- tunities and applications.